Electromagnetic Wave Scattering By Random Discrete Scatterers and Rough Surfaces With Applications to Microwave Remote Sensing

The proposed work includes basic studies of scattering theory of random discrete scatterers and rough surfaces with the emphasis on developing electromagnetic scattering models that are valid over a wide frequency range. Analytical and numerical approaches will be developed to study the following: 1. Scattering by dense media will be studied to examine effective scattering properties, backscattering enhancement and localization with applications to snow and ice terrain. The microstructures of snow and ice and their effects on scattering will be studied. 2. Scattering by conglomerations of discrete scatterers with clustering structures will be studied to examine collective scattering and absorption effects with applications to remote sensing of vegetation and forests. Electromagnetic scattering by realistic plant structures as grown by the Lindenmayer system will be studied. 3. Scattering by random rough surfaces and backscattering enhancement problems will be studied with applications to remote sensing of soils and oceans. Problems of multiple scales and multiple slopes as w ell as large incidence angles will be studied.